CNS Core: Small: Managed Languages: From Non-volatile Memory to Persistence

Soon, computer main memories will likely use new technology, non-volatile memory (NVM). While current memories lose their contents when power is removed, NVM will retain its contents. However, computers keep some recent information inside the processor. That data will still be lost. So, NVM will not by itself enable users to get back to exactly where they were. To make full recovery possible, programs will need to use NVM carefully. Doing this well for modern programming languages (such as Java and Python) is hard. This project will provide a common base of support for NVM for such languages.

Clean language semantics for non-volatility is called persistence. Managed languages (ones with garbage collection and threads) require both appropriate persistence semantics and a robust performant implementation. Adding clean persistence in the presence of threads and garbage collection is hard, and modern multi-core machines present additional challenge because of their weak memory consistency models. The project will extend a language-independent virtual machine with flexible persistence semantics. This will help avoid having every language project build its own support from scratch. The project direction is to support transactions over a persistent heap of containers and versioned objects.

The project will build on Mu (http://microvm.org), an existing virtual machine that has commercial interest. A persistent virtual machine will save development effort and encourage creative use of persistence in applications. This will contribute to innovation, reliability, and trustworthiness of software. The project team will continue to engage in recruiting students from under-represented groups, including mentoring of future applicants and visits to historically minority institutions.

The project's products will reside in a repository at https://github.com/umass-moss-lab/persistent-mu, which will continue to be available for at least three years after the project concludes. The repository will contain released code, data, etc. Non-code materials will be available under the Creative Commons license, and code under the Apache open source license, subject to the University of Massachusetts policy on intellectual property.